Collaborative Research: RUI: Knotting Phenomena in Contact and Symplectic Topology

Abstract

Award: DMS-0909273, DMS-0909021
Principal Investigator: Joshua M. Sabloff, Lisa Traynor

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The principal investigators propose to investigate flexibility
and rigidity questions that are central to the character of
symplectic and contact topology by exploring knotting phenomena
of Lagrangian and Legendrian submanifolds. Approaching
symplectic and contact geometry through a topological lens has
given rise to a young and thriving discipline with interesting
questions that explore the boundary between flexibility (when the
symplectic world behaves topologically) and rigidity (when the
symplectic world behaves geometrically). In particular, the PIs
plan to study the Arnold Conjecture for Legendrian submanifolds,
squeezing phenomena for Lagrangian disks, and the cobordism
theory of Lagrangian submanifolds. Special attention will be
paid to Legendrian knots in contact 3-manifolds and Lagrangian
surfaces in symplectic 4-manifolds. The methods used in
addressing the aforementioned problems are of interest in their
own right. On one hand, the PIs plan to develop and use
pseudo-holomorphic techniques initiated by Gromov and Floer, and
expanded to the Symplectic Field Theory (SFT) framework by
Eliashberg, Givental, and Hofer. On the other, the PIs plan to
develop and use generating family techniques. Investigations
into the structure of the holomorphic and the generating family
based invariants will yield insight into geometric flexibility
and rigidity; making connections between these different types of
invariants will increase understanding of each.

Symplectic and contact topology have their roots in physics as
the language of classical mechanics and geometric optics. While
remaining in touch with those roots, symplectic and contact
topology have blossomed into a central mathematical field that
combines features of geometry (the science of measurement) and
topology (the study of the shape of space). This field has a
variety of applications including fluid mechanics, differential
equations, and the study of the possible shape of the
3-dimensional space and the 4-dimensional space-time in which we
live. The goal of the PIs' project is to achieve a better
understanding of how symplectic and contact topology sit between
geometry and topology, and thereby strengthening the foundation
for the aforementioned applications. The PIs'research activities
will bring a diverse set of students at both the undergraduate
and graduate levels into the process of discovering new
mathematics, with the PIs' research with undergraduates serving
as a pedagogical laboratory for integrating mathematical research
into the PIs' curricula.